Distinctiveness of High Producers of Minority Science and Engineering Doctoral Starts

9355867 Brazziel This project is concerned with describing institutional programs in higher education that promise to increase the number of minorities in the science and engineering doctoral programs. The PI promises to investigate 4 year college programs that have been successful in promoting minority students through the science and engineering fields toward higher degrees. The study would be conducted by data analysis of the NAS doctoral record files supplemented with data from the Astin CIRP. Then the PIs would conduct an on site investigation of 10 colleges to describe their programs qualitatively. The PIs propose to do this study within 3 months. ***